Catalyzing new international collaboration. US-Taiwan collaboration of experimental and theoretical study of rovibrational spectra of small hydrogen-containing molecules and ions.

The majority of our knowledge of the astronomical world is derived from the emission, absorption,
and scattering of electromagnetic radiation from atoms and molecules. The astronomical observations
of atomic and molecular spectra including transition energies, intensities, and light polarization
complemented with laboratory experiments and theoretical calculations are essential in the study of
stellar atmospheres. The goal of this CNIC proposal is to catalyze an international interdisciplinary
collaboration between the group of Prof. Ludwik Adamowicz, at the Department of Chemistry
and Biochemistry, the University of Arizona (USA) and Prof. Jow-Tsong Shy, at the Department
of Physics, the National Tsing Hua University (Taiwan) on performing very accurate experimental
and theoretical studies of the rovibrational (rovib) spectra of small hydrogen-containing molecules
and clusters. These systems constitute a significant portion of the mass of the universe and are
key to the interstellar chemistry. The goal of this collaborative is to characterize and assign the
rovibrational spectra of the studied molecular systems. The obtained data can be very helpful in
identifying spectral lines recorded by telescopes and assigning these lines to particular molecules and
clusters. As a result, knowledge will be gained about the compositions of various domains in the
universe and about chemistry occurring there.

This collaboration brings together groups with very different research profiles. The Taiwan
group has been concerned with high-precision experimental spectroscopy studies of small neutral and
charged molecular systems. The theoretical-chemistry Arizona group has been involved in development
and application of very accurate quantum-mechanical methods for calculating spectra of small atoms
and molecules. Both groups are accomplished in their respective fields. In this project, the theory
and the experiment will be combined in elucidation of the spectra of molecules and clusters involving
hydrogen and its isotopes. The studies are very fundamental in nature and as such they are well
suited for NSF funding.